Partnership for Expanding "Exploring Computer Science" (PEECS)

The University of California San Diego (UCSD) proposes a planning grant to
build the Partnership for Expanding "Exploring Computer Science" (PEECS)
with the goal of increasing the number of underrepresented minority and
female students from San Diego County that graduate from high school
interested in and prepared to pursue college majors in computer science and
related fields. PEECS was inspired by the BPC Alliance, "Into the Loop," which
introduced a new course, "Exploring Computer Science" (ECS), in the Los Angeles
Unified School District. ECS is an introductory course that could be a
steppingstone to Computer Science Principles, the proposed new Advanced
Placement (AP) course. These two courses have the potential to transform
high school education in computing.

The CS Principles course is being piloted at UC San Diego this year. Together
with the facts that "Into the Loop" personnel live in the San Diego region,
there are close ties between the UCLA and UCSD campuses, UCSD Computer Science
is already involved in revamping their freshman curriculum, and UCSD's San Diego
Supercomputer Center (SDSC) has a well-established technology and computational
science professional development program for pre-college teachers (SDSC
TeacherTECH), this puts San Diego at the right time and place for a major
overhaul of its high school computer science programs.

PEECS proposes to pave the way for a successful expansion and adaptation of
ECS into a new region, San Diego County. There, multiple school districting
structures, policies, processes, and academic community cultures present their
own new challenges to change. Experiences gained in adapting the ECS program
to the diverse needs of the San Diego region will provide valuable lessons as
the wider dissemination of ECS and CS Principles goes forward. This planning
grant will bring together the important stakeholders to develop the necessary
partnerships and directions for this effort.